Molecular and Developmental Biology of Plants (Summer Course)

This proposal is for support for the Cold Spring Harbor three week summer course in Molecular and Developmental Biology of Plants. This is a continuation of the course that has been funded by the National Science Foundation since its inception eight years ago. The intention is 1) to teach molecular techniques to scientists who are already involved in research with plants so that they can bring this orientation to their own future research, and 2) to teach key experimental systems in plant biology to scientists who are familiar with microbial or animal systems and with to work with plants. Lectures in the course are given by the organizers and by invited lecturers who are working on current research frontiers, and are leaders in their field. Laboratory sessions focus on methods to obtain and characterize transgenic plants and to study gene expression. laboratory sessions will be taught by the course instructors, and by invited lecturers who bring their laboratory materials with them. %%% This course has served has a valuable training opportunity for researchers entering the field of plant molecular biology.